U.S.-Japan Cooperative Research: Data Analysis of FermiLab Experiment E-653 and Measurement of the Oscillatins of Muon Neutrinos into Tau-Neutrinos

This award will provide support for continuing collaboration between scientists from the Department of Physics, Ohio State University, lead by Professor Neville W Reay, and scientists from Nagoya University, Japan, lead by Professor Kimio Niwa. The objectives of this project are to continue to investigate areas in theoretical physics of mutual interest, namely mixing and CP violation in the decays of B-mesons and the gage structure of electro-weak theories beyond the standard model. Collaboration between these two groups has continued for the last decade and their past activities have produced several important results in charm physics. This award will provide support for the completion of the analysis of the Fermilab experiment E653. E653 has very important data on the semileptonic decays of charmed particles. These decays are the key to measuring the K-M matrix, one of the most fundamental quantities in elementary particle physics. At the present time the existing semileptonic decays data is confusing and the E653 data can bear directly on resolving these issues. It is also intended to undertake a hybrid emulsion experiment (Fermilab P803) to measure the oscillation of Muon-neutrinos into Tau-neutrinos, which could decide whether Tau-neutrinos are the long sought after dark matter in the universe. The observation of an effect on P803 would have a dramatic effect on our understanding of particle physics. The collaboration between these two groups is long-standing and successful, and both the US and Japanese groups have demonstrated a high competence in the techniques involved. The strengths of the US and Japanese participants are complementary. Collection of data by both U.S. and Japanese scientists on the project is done at Fermilab, together with some of the electronics analysis. Analysis of emulsions and additional electronic analysis is carried out in Japan. If the project is successful, the results of the research will be of great scientific interest to the particle physics community.